Southern San Diego Bay Science LSC K-8 Project

9911563
SCHEFFLER

ScienceTIP is a teacher enhancement initiative for K-8 teachers in the Sweetwater middle schools and the four feeder elementary districts in California. This planning grant project will use a systemic approach to further define the steps required to accomplish three major goals. These final goals are: 1) adopt and implement a K-8 standards-based science curriculum, 2) form a collaboration between teachers and administrators of the participating schools with science content experts in the area in order to provide a professional development program for standards-based instruction, and 3) change classroom practice so that students leaving the K-8 system move forward prepared for high school science courses.

The planning grant will use the NSRC model involving school district leadership teams. These teams will meet during the planning timeframe in order to address five (5) elements for effective science education programs. From this planning, a long range strategic plan will be produced. This final plan will be coordinated into a full proposal for later submission.